CSR: Medium: Collaborative Research: Workload-Aware Storage Architectures for Optimal Performance and Energy Efficiency

The most significant performance and energy bottlenecks in a computer are
often caused by the storage system, because the gap between storage device
and CPU speeds is greater than in any other part of the machine. Big data
and new storage media only make things worse, because today's systems are
still optimized for legacy workloads and hard disks. The team at Stony
Brook University, Harvard University, and Harvey Mudd College has shown that
large systems are poorly optimized, resulting in waste that increases
computing costs, slows scientific progress, and jeopardizes the nation's
energy independence.

First, the team is examining modern workloads running on a variety of
platforms, including individual computers, large compute farms, and a
next-generation infrastructure, such as Stony Brook's Reality Deck, a
massive gigapixel visualization facility. These workloads produce combined
performance and energy traces that are being released to the community.

Second, the team is applying techniques such as statistical feature
extraction, Hidden Markov Modeling, data-mining, and conditional likelihood
maximization to analyze these data sets and traces. The Reality Deck is
used to visualize the resulting multi-dimensional performance/energy data
sets. The team's analyses reveal fundamental phenomena and principles that
inform future designs.

Third, the findings from the first two efforts are being combined to develop
new storage architectures that best balance performance and energy under
different workloads when used with modern devices, such as solid-state
drives (SSDs), phase-change memories, etc. The designs leverage the team's
work on storage-optimized algorithms, multi-tier storage, and new optimized
data structures.